RIMI: Fast Detection of Flaws and Residual Stresses in Composite Materials by a Real-Time Nondestructive Laser Technique

Fiber reinforced organic matrix composites are being used or proposed as primary and secondary structures for numerous military and commercial applications. The presence of flaws and residual stresses in these composites are often caused by the fabrication and/or installation process. Moreover, the structural behavior of these advanced materials is known to be affected by in-service environmental conditions (humidity, temperature, pressure, impact, etc.). These conditions induce residual stresses and microcracking in the composite, and can irreversibly degrade the fiber/matrix interface. The proposed research is designed to develop and demonstrate a novel automated NDE technique, laser speckle shearing interferometry, capable of rapidly determining the residual stresses and locating flaws in composites. By allowing fundamental real-time measurements to be made in situ, the development of engineering models can be attained, and thus will contribute to improved basic studies of composite materials under various operational conditions. The technique is viable and suitable for operation in a manufacturing environment or dept/repair facility and in the field. Two minority undergraduate students and one graduate student of engineering will assist the principal investigator in the proposed research.